A High Resolution Spectrograph for the Hobby-Eberly Telescope

9531674 Tull This project will construct a high resolution spectrograph (30,000 < R < 120,000) for the 9-meter Hobby Eberly Telescope. The spectrograph will operate in the visible region of the spectrum and is adapted from a successful design used in the Ultraviolet-Visible Echelle Spectrograph of the European Southern Observatory. The spectrograph uses a 20 cm by 80 cm echelle and cross-dispersing gratings. The detector is a mosaic of two 2048 x 4096 pixel CCD's with 15 micrometer pixels. The spectrograph is fiber fed and is located in a spectrograph room under the Hobby-Eberly Telescope. ***